U.S. Participation in International Engineering Organizations

Partial support is provided for the American Association of Engineering Societies as the U.S. institutional member of the World Federation of Engineering Organizations (WFEO) and Pan American Federation of Engineering Associations (UPADI). The purpose is to allow U.S. engineers to participate in internatational activities of mutual interest. The aims of WFEO are primarily to address major engineering problems in a global perspective. UPADI is for the purpose of cooperation in science and technology, through engineering, for the benefit of the people in the Americas.